Novel Catalytic Chemistry of Metalloporphyrins

This project, supported by the Inorganic, Bioinorganic and Organometallic Chemistry Program, will explore the synthesis of optically active, tetraaryl porphyrins, which have conformationally locked, chiral centers on each aryl group, and the utilization of metal complexes of these new prophyrins as catalysts for several important reactions of organic molecules. The main focus is on the rhodium-porphyrin catalyzed cyclopropanation of alkenes by diazo esters where preliminary results with one catalyst that has already been prepared indicates that there is a high, and unique relative to other catalysts, diastereoselectivity for formation of the syn product. Other reactions to be explored include epoxidation (manganese catalyst) and the Diels-Alder reaction (aluminum catalyst). Another major focus of the work will be an investigation of the mechanism of the cyclopropanation reaction including the pathway by which the catalyst is deactivated. Although many catalytic cycles were realized in preliminary trials, a long lifetime for the catalyst is required for practical applications because of the high cost of the synthetic porphyrins. %%% The focus of this project is the development of new catalysts for the stereoselective synthesis of organic compounds. Of especial interest is the formation of cyclopropanes (three membered rings) from olefins and diazo esters. A part of the study will involve the determination of the manner in which the catalyst promotes the reaction and how the stereochemistry of the product is determined.